Paleontology, Systematics, and Molecular Biology: Short Course, Symposium, and Workshop, GSA Annual Meeting, Denver,Colorado, October 30 - November 2, 1988

Support is provided for a symposium-work shop on "Computer Assisted Phylogeny Programs in Research and Teaching" and a short course on "Molecular Evolution and the Fossil Record" to be held in conjunction with the Annual Meeting of the Geological Society of America in October, 1988. The object of both the symposium and the short course is to acquaint paleontologists with the latest research, methods and techniques in molecular evolution and computer assisted manipulation of phylogenetic data, so that these can be incorporated immediately into their own programs of teaching and research. Both the short course and symposium will be augmented by take-home, "hard-copy" computer programs that will introduce them, on their own computers, to some of the phylogenetic programs presented during sessions. The conjunction of short course and symposium will bring molecular evolution and computer assisted techniques to a wide range of paleontologists.